Fluid-Rock System Evolution During Folding: A Detachment Fold Example from the Mexican Sierra Madre Oriental

9972993
Fischer

The deformation of rocks in most tectonic environments involves extensive rock-fluid interactions that affect chemistry, mineralogy, and physical properties such as mechanical strength. This project is aimed at examining fluid-rock interactions involved during fold development, a facet receiving little attention in comparison to fluid-rock interaction in fault rocks. The project will employ several techniques to define paleohydrostratigraphic units in a well exposed fold and compare the spacio-temporal evolution of these units with mechanical units exhibiting characteristic deformation patterns. Results will be used to test whether paleohydrostratigraphic units correlate with mechanical units, and whether fluids are rock-buffered and fluid flow is compartmentalized for the duration of the folding process, factors important in understanding the role folds play in regional orogenic fluid systems.